Hydrodynamics of Fluidization: Structure and Turbulence

Abstract
CTS-0086250
D. Gidaspow, Illinois Institute of Technology

This is the proposed continuation of a research supported by NSF for the last six years. Its objective is to obtain a good quantitative understanding of the flow particle suspensions (fluidization), including some of its main characteristics (Reynolds stresses, granular temperature, bubbles and particle size). The challenge is to add to the traditional conservation equations for each phase and particle type, the phenomenological properties of the mixtures involved (e.g. viscosity). With this information, it was shown early in this research that it is possible to generate a predictive theory with a more accurate and detailed description of the flow. A number of experiments (seven) are proposed to establish the necessary phenomenological constants for different multiphase mixtures: gas-solid, gas-liquid-solids, bubbling beds.